Minimal Surfaces and Singular Geometry

ABSTRACT DMS - 0203434.

Frank Morgan will study minimal structures in singular universes: with
conical singularities or with Lipschitz metrics, for example. He will also
study mathematical models for soap bubbles clusters and immiscible fluids
"with multiplicities," following work of Fleming and White. Methods include
standard and innovative applications of geometric measure theory,
differentiable geometry, differential equations, and techniques from the
proof of the Double Bubble Conjecture. He will supervise related
undergraduate research, especially on variations on the double bubble
problem in various ambients and settings.

The guiding principle of nature seems to be energy minimization, from the
microstructure of materials to black holes in the universe. As one of the
simplest examples, soap bubble clusters seek to minimize surface area. If
successful, Morgan's study of such problems will enhance our understanding
of fundamental physical principles, with implications for the structure of
materials and the universe.